MARINER: Metacenter-Affiliated Resources In the England Region

9523469 Rebbi As HPCC technologies, especially parallel computing and high performance networking, become available to much wider segments of the community through the emergence of the NII, there is an increased need for people who understand this technology and are capable of applying it in all sectors of education's, research and business. It is more important than ever to find effective means to link efforts on a national scale to regional and local efforts in order to expand access to and involvement in HPCC for broad sectors of society. The MARINER (Metacenter-Affiliated Resource In the New England Region) project by Boston University will serve as a focal point for HPCC/NII related activities in the New England area. It will act as a catalyst for wide diffusion of technologies and as a channel to the Metacenter. Mariner will draw on the University's advanced computing and communications facilities and build on its experience in computer science, computational science scaleable parallel computing and wide area networking to provide education and tra ining to a wide audience and reach out to institutions within the area that have hitherto not been part of the HPCC/NII community. Key elements of MARINER are: training, education and research programming, outreach programs and activities, and access to facilities at boston University.